SBIR Phase II: Remediation of Organic Pollution via Catalyzed Photooxidation of Pollutants in Air and on Surfaces

*** Johnson 9501892 This Small Business Innovation Research Phase II project seeks to develop novel materials for use in photocatalytic destruction of organic contaminents in air, water and on surfaces. The research objectives are to develop non-oxidizable ambient-temperature binders for photocatalytic TiO2; enhance destruction rates of target compounds using tailored surface coatings; demonstrate commercially useful self-cleaning, biocidal clear coats; and show that photocatalytic reactions produce no undesirable byproducts. Target applications of the technology include treatment of industrial air emissions, destruction of chlorinated organics in drinking water, and self-cleaning, mildewcidal and bactericidal architectural paints and clear coats. Spin-off applications that are envisioned include clean rooms for semiconductor manufacturing and control of fruit ripening. *** p:\sbir\yhashimi\9501892c.doc